Model-based reconstruction of neural networks

Nykamp

Higher-level functions, such as visual object recognition or
memory, emerge from interactions within the brain's neural
networks. The ability to determine the patterns of connections
among neurons would facilitate discovering how such computations
are performed. Because many connectivity patterns could
theoretically produce neural output with only subtle differences,
characterizing even basic circuitry elements within the brain
remains a formidable challenge. The goal of this project is to
develop and analyze mathematical models of neuronal networks in
order to design tools that can distinguish among network
configurations. Preliminary studies have demonstrated a new
approach that shows promise of leading to tools to infer
connectivity patterns in spiking neuronal networks. The key idea
motivating this approach is to exploit models of neural response
to an experimentally controlled stimulus in order to analyze
neuron output. The explicit structure imposed by mathematical
models helps overcome a major difficulty in estimating network
connectivity from experiments: the fact that only a small subset
of neurons can be measured simultaneously. Hence, the central
challenge addressed by this project is accounting for the effects
of unmeasured neurons. Mathematical models lead to predictions of
the effects of connections from unmeasured neurons. The aim of
the work is to use these predictions to factor out the effects of
unmeasured neurons and better estimate the connectivity among the
measured neurons. The resulting tools help neuroscientists
understand local circuits that underlie neural processing and
function within the brain.

The goal of this work is to develop mathematical tools that
neuroscientists can use to determine how neurons in the brain are
connected to each other. Understanding how neurons are connected
is an important first step toward discovering how neurons
communicate with each other to process information. Such
knowledge could help scientists better understand the effects of
the degradation of such connections, such as in neurodegenerative
diseases, and devise strategies to mitigate or reverse these
effects.